A Leadership Training Program for Middle Grade Mathematics Teachers

This Leadership Activities project will provide opportunities for 30 teachers in the state of Michigan to become knowledgeable about the Middle Grades Math Project (MGMP) and its attendant instructional model and to subsequently serve as leaders in mathematics education in their school districts. Sixty peers of the 30 leader teachers will also have the opportunity to learn more about the materials and model in a summer workshop in 1987. Both the leader teachers and the peer group will have follow-up support from the Aquinas College staff and from administrators and supervisors in their own school districts. All participants, especially the leader teachers, will be encouraged to develop additional instructional materials consistent with those developed by the MGMP. The leader teachers will be recruited for the program by Aquinas College staff in cooperation with district administrators who recognize their instructional skills, desire for improvement, and leadership potential. The leader teachers will be actively involved in the identification of the peer teachers in the second year. The leader teachers will also be responsible for conducting in-service programs in their school districts in addition to implementing the MGMP units and instructional methodology in their own classrooms. The project will have direct support from the developers of the MGMP materials and will allow immediate use and evaluation of those materials in a summer school of middle grade students. A well-developed evaluation model will allow measurement of the impact of the program on both the teachers and their students.